SBIR Phase I: Microchip Assay for Glycosylated Hemoglobin

This Small Business Innovation Research (SBIR) Phase I project proposes to develop an integrated microchip system for glycosylated hemoglobin (GHb). The approach adapts existing protocols for GHb detection using capillary gel electrophoresis and pulsed amperometric detection.

The commercial application of this project will be to provide an economic glucose monitoring device for diabetics.